Tools for Directed Evolution of Oxygenases: High Throughput Screening of Epoxidation and Hydroxylation Catalysts

Chemical oxidations are sloppy processes on an industrial scale,
and biological oxidations have been hampered by poor reactivity of
enzymes and the need for expensive cofactors. Improvement of
these enzymes by directed evolution is likely, but require rapid
and sensitive assays. The goal of this project is to develop new
technology for the rapid screening of oxygenase libraries. The
digital imaging combined with fluorescence-activated cell sorting
will be used to screen large collections of mutations for the
appropriate activity. Horseradish peroxidase will be coexpressed
with the oxygenase to create fluorescent tags from the
hydroxylated aromatics formed by the oxygenase. By rapid
screening of the large collections, the rare improvement can be
detected and further upgraded.